Oceanographic Technical Services

0070790
Smith
This award to University of Alaska Fairbanks provides shipboard technical support, shore-based support, instrument maintenance and instrument calibration for researchers using R/V Alpha Helix, a research vessel operated by the university's Seward Marine Center as part of the University-National Oceanographic Laboratory System research fleet. The technical support awarded here will assist NSF-funded researchers conduct oceanographic studies in the Gulf of Alaska, Bering Sea and adjacent regions in CY2000 and beyond.
***